CISE Research Instrumentation: Multiprocessor and Sensor Hardware for Vision, Learning Planning and Parallel Processing Research

9422007 Beveridge This award is to purchase two shared-memory multiprocessor systems, one with accelerated 3D graphics as required by the following research projects: 1) Computer Vision and Graphics; 2) Combinatorial Optimization Using Local and Global Search; 3) Machine Learning for Classification and Control; 4) Planning Agents in Dynamic Simulated Environments; 5) Comparing Functional Programming Languages. Essential to these projeats is the computational power of the multiprocessors. The equipment will provide a means to gain experience mapping algorithms onto coarse grain parallel hardware. Many parallel algorithms in these projects require a shared memory multiprocessor architecture. The vision, graphics, learning and planning projects explicitly benefit from the 3D graphics capability of the hardware. In addition to the above projects, this equipment will be available for exploration of new areas of research. ***